Biocomplexity: Carbonshed Studies of Carbon Sequestration in Complex Terrain

0321918
Monson
Recent estimates that regionalize the US carbon sink suggest that a significant fraction is in
the Western US, in ecosystems that occur in hilly to mountainous regions. We have used
satellite data and ecosystem models to show that Western US montane regions contribute
disproportionately to the US carbon sink; we estimated that 25 to 50% of the total continental US
carbon sink, and up to 75% of Western US carbon sink occurs in mountainous terrain. Our
ability to validate these predictions with measurements, or to build on them with improved
mechanistic models, is limited. Although the scaling of biogeochemical processes was
pioneered in mountain watersheds, recent research has focused more on the "tower footprint"
paradigm than the watershed approach; unfortunately, our current capabilities with tower-based
measurements are not adequate to develop accurate mass balance predictions in complex
topography, and this has diminished efforts to understand biogeochemical fluxes in the
mountains. In this proposal, we develop a "carbonshed" approach for the study of the
ecosystem carbon balance of montane landscapes. We define a carbonshed within the same
context as a watershed - a mountainous tract in which the slopes and valleys cause complex
topographic patterns, which directly influence the drainage and accumulation of CO2, as well as
patterns in the redistribution of energy and water, which indirectly influence the exchange of CO2
across the landscape. We make the case that the carbonshed scale is crucial for linking local,
ecosystem-level CO2 fluxes to regional, landscape-level CO2 fluxes.
In this proposal, we present a plan to measure carbonshed CO2 fluxes in the Front Range of
the Rocky Mountains in Colorado. Recognizing that direct measurement of carbon budgets
using atmospheric techniques will be impossible in complex landscapes, we focus on modeldata
integration, using measurements to calibrate and constrain models, and models to
interpolate observations. Recognizing also that carbon and water exchange are closely coupled,
especially in this semi-arid Western environment, we focus on linking carbon and water
measurements. We will challenge process models with measurements at multiple time and
space scales, utilizing seasonal to interannual flux measurements, carbonshed scale campaigns
to scale up (10's of km), and regional (1000's of km) airborne measurements. Large fires in
2002 will allow us to make airborne measurements of carbon dynamics in recently burned
systems, a unique test of the upscaling of fluxes in disturbance-based models. The project's
modeling will use a coupled ecosystem-atmosphere model, allowing simulated fluxes to be
translated into concentration patterns for comparison to surface and airborne observations.
The proposal addresses the intellectual merit criteria by 1) identifying a new phenomenon in
carbon science: the tendency for carbon sinks to develop in high-relief ecosystems, as a result of
the interaction of climate with land use patterns, 2) proposing innovative and cross-disciplinary
methods to measure this phenomenon, and 3) assembling a team including biophysicists,
meteorologists, ecologists and educators to study this problem.
Broader Impacts
The studies will provide training opportunities for two graduate students and two,
postdoctoral students. The funded activities will serve as the catalyst to develop a new course
on human-environment coupling that will include an analysis of the combined roles of land use
history, water resources, fire suppression and biophysical controls over carbon in the mountains.
The research will support a significant K-12 and teacher training program coordinated by the
University of Colorado CIRES Office of Education and Outreach. The proposed research will
contribute to scientific infrastructure by adding a greatly enhanced carbon cycle instrumental
capability to the NSF Facilities at NCAR ATD, which are available to the general scientific
community. Additionally, a greatly improved 4-dimensional model for analyzing regional carbon
sink activity will be made available to the general scientific and public policy communities for use
in analyzing US carbon sinks and their relevance to global carbon cycle issues.